Some Fundamental Issues in Elasticity

This project will study two fundamental problems in elasticity. These problems are the interaction of geomectric and load induced singularities, and interface phenomena.